ITR: Data Driven Design Optimization in Engineering Using Concurrent Integrated Experiment and Simulation

The proposal focuses on the development and validation of an innovative methodology for Multi-criteria Design Optimization (MDO) in engineering which integrates concurrent experiment and simulation. This methodology, denoted Data Driven Design Optimization Methodology (DDDOM), represents a major change from current engineering design practice which uses experiment and simulation in a sequential manner. The methodology will leverage the inherent advantages of experiment and simulation in a Dynamic Data Driven Application System. The methodology will be validated for the optimal design of three cases: a flush mounted inlet for a generic ogive-cylinder body, a cooling system for electronic components, and a lumbar vertebral spinal structure. The experiments and simulations will be performed at Rutgers University. The proposal includes an integrated educational program involving students at the high school, undergraduate and graduate levels with specific emphasis on women and minorities. The research program will draw students from five existing programs of the Rutgers School of Engineering Office of Special Programs. Four research teams will be formed with participants drawn from each of these programs. These teams will provide a unique opportunity for research experience and leadership development. Endorsing organizations include Boeing, IBM, and the University of Medicine and Dentistry of New Jersey.